Operation of a National Center for Small-Angle Scattering Research at the Oak Ridge National Laboratory (Materials Research)

This is a request to provide renewed support for the operation of a National Center for Small-Angle Scattering Research under the direction of G. D. Wignall at the Oak Ridge National Laboratory. The center operates as a National Facility providing outside users with access to a 30 meter small-angle neutron scattering instrument at the High Flux Isotope Reactor (HFIR), and a 10 meter small-angle neutron scattering instrument at the Oak Ridge Research Reactor. A 10 meter small angle X-ray scattering facility with a rotating anode source has also been available to outside users on a part time basis. The Center is staffed by three research staff members (including the director) and associated support personnel. The center identifies four major scientific areas for its research activities and user programs: polymers; colloids and microemulsions; metallurgy and ceramics; and biological sciences. In all these areas important scientific advances are being achieved and research of high quality is being performed, both by outside users and by the Center's own research staff. Small- angle scattering research is important to many fields of science and there are many areas where its impact and importance are still increasing. The center constitutes a facility that is accessible to the research community and unique in the nation. The key component is the 30 meter neutron scattering instrument. Interactions with the management and research staff of the Solid State Division at Oak Ridge National Laboratory are strongly synergistic and mutually beneficial. Support for continued operation of the National Center For Small- Angle Scattering Research is strongly recommended, with emphasis on neutron scattering research and facility development for research in all four scientific areas addressed. This is a thirty-one month award. Continued support for the final two years of this award is contingent on the anticipated restart of the HFIR reactor in mid-1987. This is a renewal of NSF grant No. DMR-8311769.